An Initiative to Encourage the Participation of Native Americans in the Sciences

Abstract

This project is increasing the numbers of STEM graduates by developing innovative curricular, recruiting and mentoring strategies. A unique focus of the project is on increasing the numbers of Native American STEM majors. The project is identifying Native American students and involving them in research while they are in high school; mentoring and preparing the participants for their freshman year through a summer bridge program; providing a complete tuition waiver, mentoring and a support network through the student's undergraduate experience; and involving the participants in active and dynamic summer undergraduate research experiences.

The project is also refining an existing environmental science minor into a major field of study. Faculty are developing new courses that are being team taught and focusing on interdisciplinary approaches to environmental studies. Several of the courses are focusing on the institution's existing sustainability efforts.